Exploration of Careers in Science

9353897 Peters Indiana University seeks to initiate an eight-week, residential, Young Scholars project in Multi-disciplinary Science for 50 students from Indiana entering grades 11 and 12. The students will learn about research methodology and career opportunities in the various science fields through lectures, field trips, and hands-on laboratory activities. Students will also work as apprentice scientists under the auspices of University faculty. Throughout the program, emphasis will be placed on philosophy and ethics of science, careers in science and mathematics, and the interrelationships of the various scientific areas.